International Conference on Ricci Flow, Paris, France, June 30 - July 4, 2008

Abstract

Award: DMS-0704193
Principal Investigator: John W. Lott

The Institut Henri Poincare (IHP) in Paris will host a
trimester-long program on Ricci Flow and Ricci Curvature over
April-July, 2008. As part of this French activity in a
rapidly-developing area of geometric analysis, an International
Conference on Ricci Flow is scheduled for June 30-July 4, 2008 as
a conclusion to the trimester. Topics of the trimester and
conference are expected to include Ricci flow in the
geometrization of three-manifolds, Kaehler-Einstein metrics and
Kaehler-Ricci flow, metrics of constant scalar curvature, Ricci
flow in dimensions four and higher, analytic aspects of geometric
flows, Einstein metrics and recent developments in geometric
relativity, synthetic Ricci curvature, and Ricci limit spaces.
This landscape was transformed by Perelman's work on Ricci flow
in three-manifolds and all of these areas have enjoyed recent
advances.

This award provides partial support for expenses of US-based
participants in the Paris conference, particularly graduate
students and junior researchers. The subject of the workshop is
the Ricci flow and its extensions. This differential equation
and technique in geometry became celebrated with its application
by Perelman and Hamilton to the Poincare Conjecture on the
topological uniqueness of the three-dimensional sphere, one of
the great challenge problems of mathematics. The technique
considers a single space with a large number of metrics (ways to
measure distance in the space) by using the Ricci curvature at
each metric to determine a direction for evolving the metric that
is likely to make the metric more symmetric -- loosely speaking,
we try to change in the direction of ever rounder metrics.
Although it is often difficult to control all the details
necessary to make such an argument succeed, geometers have found
that this idea identifies optimal metrics in a variety of
important situations. The conference web page is
http://www.ihp.jussieu.fr/ceb/Trimestres/T08-2/C2/index.html.